ITR/SY: Non-Deterministic Computations for Functional Logic Programs

0110496
Sergio Antoy
Portland State University

ITR/SY: Non-Deterministic Computations for Functional Logic Programs

Abstract:

Narrowing allows the seamless integration of functional and logic
computations. A narrowing strategy selects from an expression the
subexpression(s) to evaluate and instantiates variables if
necessary. Different selection strategies extend from functional
to functional logic programming computational behaviors such as
call-by-value and call-by-need. Sound, complete, and optimal (to
varying degrees) strategies are known for both Haskell-like
programs and programs that allow some forms of parallelism.

Unfortunately, these classes of programs do not support
non-deterministic computations. The lack of non-determinism is a
severe limitation in functional logic languages. It prevents the
use of familiar logic programming idioms and, in some cases, leads
to programs that violate the inherent laziness of a problem. The
research proposes a new computational framework, a class of
programs, and a strategy for narrowing computations in this class
that supports non-determinism without loss of soundness,
completeness or efficiency. Within this framework, programs become
textually shorter, conceptually simpler, more modular, easier to
understand and maintain, and arguably more efficient.

The proposed strategy has the potential to encompass strategies
for other interesting classes of functional logic programs and it
is expected to unify various concurrent disjoint efforts aiming at
integrating different narrowing strategies within a single
language.